The Artemis Project

This award supports the Artemis project, a 5-week Summer program administered by Brown University's Department of Computer Science designed to encourage girls from local public schools to pursue careers in Computer Science, and more broadly in science and engineering. Participants are rising ninth graders and are exposed to the breadth of applications of Computer Science, and are introduced to a variety of the technologies underlying computing. An equally important goal of Artemis is to develop the leadership and entrepreneurial skills of undergraduate women who serve as coordinators each year. These coordinators serve the local community in their capacity as social entrepreneurs.